Algebraic geometry over finite fields

The project will focus on three related areas of research in algebraic
geometry over finite fields. First of all we intend to attack Artin's
conjecture that the Brauer group of a projective surface over a finite
field is finite. Here do Jong will study especially elliptic surfaces and
surfaces with ample cotangent bundle. Secondly, de Jong will study the
arithmetic fundamental groups of curves over finite fields. Here the
main questions are concerning the dynamic of the Verschiebung on the
moduli spaces of bundles, the growth of the fundamental group, and the
distribution of the Frobenius elements in the fundamental group. And
thirdly, in an ongoing collaboration with others (Starr, Hassett,
Tschinkel, et al) de jong will study the geometry of moduli spaces of
rational curves on higher dimensional varieties. Here of
particular interested are in finding applications to other areas of
research. Meanwhile, with the goal of making it easier for graduate
students and newcomers to work on these problems, de jong intends to run a
web-site where collaborative development of introductory texts on the
topics is done.

The area of mathematics that this proposal finds itself in has seen a
lot of progress in the last decade. Nonetheless there are many
important problems outstanding. Perhaps the most exiting of these is
Artin's conjecture mentioned above. Among other things it implies the
Birch-Swinnerton-Dyer conjecture for elliptic curves over function
fields of curves over finite fields. An example of such a field is the
field of rational functions in one variable over a finite field. Many
famous classical number theoretical questions have their analogue for
such function fields, and a number of these, such as the Riemann
Hypothesis, have been shown to be true in the function field case. The
reason for this is that people can study curves and more generally do
algebraic geometry over finite fields, to prove the conjectures. In
this project we will study geometric approaches to Artin's conjecture,
for example by thinking about moduli of vector bundles over curves and
surfaces over finite fields.